REU Site at the Shannon Point Marine Center: Field and Laboratory Studies of Coastal Marine Processes

Abstract: Sulkin, Stephen/Western Washington Univ. Proposal #: 05-51898

This award provides renewed funding for a REU site at Western Washington University,s Shannon Point Marine Center (SPMC) located in Anacortes, WA. The program will provide support for eight student internships each summer for five years. The students will participate in a nine-week independent research program and will receive a weekly stipend, food allowance, housing on-site, and travel to and from SPMC. Students will be recruited nationwide, with special attention given to the recruitment of minority students. Students will be mentored by faculty at SPMC and will be encouraged to conduct research related to the theme of living resources and processes of the local coastal environment. Students will complete a written report and give an oral presentation of their research. The program provides students with exceptional access to the coastal and marine environment of the Pacific Northwest. Over the duration of the award, a total of 40 students will have an in-depth independent research experience and receive training that will help them succeed in scientific careers.